Undergraduate Research Program in Chemistry (URPC) at Atlanta University Center

The Chemistry Division Office of Special Projects is renewing support for the "Undergraduate Research Program in Chemistry (URPC)" at Atlanta University Center, Inc. The project will be conducted by Professor John H. Hall, Jr. and two other faculty members of the Earth and Atmospheric Sciences Department. Eight undergraduate students will actively participate in research projects during the period 1990-92. The research will extend throughout the academic year and during an eight week summer period each year. The research projects are in atmospheric chemistry and include molecular orbital modeling of important gaseous species and trapping and identification of free-radicals and transient molecules by matrix-isolation- spectroscopic techniques. Minority students from Atlanta Center and other regional institutions will participate.